Dissertation Research: Community Development in the Western Guatemalan Highlands

This project will allow a student in cultural anthropology to conduct research leading towards a dissertation. The student will live in a Mayan Indian community in northern Guatemala, and will explore how a subordinate population of peasants tries to renegotiate the terms of its situation by studying an unusually harsh case, that of Mayan Indians who have been occupied by the Guatemalan army following an unsuccessful guerrilla uprising. By focusing on the postwar reconstruction in northern Guatemala, studying the land distribution projects and the rapid growth of evangelical Protestant churches, the project will contribute to an understanding of how poor peasant communities defend themselves in the face of external pressure. Methods used will include participant observation, archival research, and formal interviews with relevant government and non-government agencies. This research is important because the harsh recent history of Guatemalan Indians (involvement in local fighting, occupation by the National army, influence by religious missionaries) is a common experience in peasant communities, where a large portion of the world's population lives. Increasing our understanding how these communities react to such pressures will help us cope with these changes.